FT-NMR for Improved Undergraduate Research and Instruction

The purchase of a high field, variable temperature Nuclear Magnetic Resonance Spectrometer has enhanced the undergraduate research and instruction at Southern Oregon State College. With beyond the study of simple proton spectra. The instrument is incorporated into laboratory courses in Organic, Inorganic, Analytical, Biochemistry, and Advanced Organic to provide extensive opportunities for students to become familiar with the operation of the instrument, interpret spectra, and understand the significance of FT-NMR to current chemical methodology. The undergraduate research program is greatly impacted by the extended capabilities of such an instrument. Some of the projects affected are: Cyclopropenes as Allene Synthons, Chromium and Manganese Complexes containing Diisocyanide Ligand Bridges, Asymmetric Epoxidation of Chiral Vinyl Silanes, and Structure Elucidation of Unusual Compounds from Lichens. The institution is matching the NSF grant with an equal amount of funds.